Routing Arbiter for NSFNET and the NREN (R) Program

9321060 Merit, Inc. Aupperle The major project elements for the routing arbiter include advancement of Internet routing algorithms with respect to scaling and stability issues, routing information registration and dissemination for the network service providers serving the Internet, deployment of route servers to aid in the dissemination and real time maintenance of the global Internet routing system, and coordination and sharing of technical information in support of the Internet operations community. A key task for the routing arbiter will be to enhance the use of new switched services offered by the telecommunications carriers, sucy as ATM, in place of dedicated point to point technology that is widely deployed in wide area internets. This proposal is a part of a collaborative effort with USC. Merit will take the lead responsibility for the Management and Coordination, Transition, Routing Registry Dababase, Routing Operations Center (ROC) and GateD software development and collaboration. It will provide consultation to USC in routing engineering who will take the lead in research and development. Both the Merit and USC teams will collaborate in all areas, but Merit will take the lead for operations, for communications with clients relative to the services provided and for overall coordination.